MPS-Ascend: Bi-Orderability, Fibered Knots, and Cyclic Branched Covers

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). PI Jonathan Johnson is awarded a National Science Foundation Mathematical and Physical Sciences Ascending Postdoctoral Research Fellowship (NSF MPS-Ascend) to conduct a program of research and activities related to broaden participation by groups underrepresented in STEM. This fellowship to Dr. Johnson supports the research project entitled "MPS-Ascend: Bi-Orderability, Fibered Knots, and Cyclic Branched Covers", under the mentorship of a sponsoring scientist. The host institution for the fellowship is Oklahoma State University, and the sponsoring scientist is Dr. Neil Hoffman.

Motivated by the PI’s past research, this project includes a novel conjecture linking bi-orderability of fibered and two-bridge knot groups to the L-space conjecture conditions of the cyclic branched covers of the knots, a possible characterization of bi-orderability in terms of the Alexander polynomial of knots, and new methods of producing examples of bi-orderable 3-manifold groups. For broadening participation, the PI plans to create a Directed Reading Program at Oklahoma State University, with a focus on recruiting students from underrepresented groups, particularly the university's large Native American population. An additional contribution will be to create publicly accessible online videos covering a broad range of topics in low-dimensional topology, aimed at undergraduate students and early career mathematicians